NSF-BSF: Surface-Sensitive Spectroscopy and Microscopy on Metal/Oxide Interfaces at Atmospheric Pressures

Non-Technical Summary

Surface science is the field of elucidating the fundamental aspects of chemistry and physics occurring on the surface of materials with the goal of providing fundamental information to the industrially important fields of catalysis, electrochemistry, corrosion, and lubrication. Classical surface science is carried out in refined conditions of vacuum pressures and very low temperatures; conditions which are almost as empty and cold as outer space. Surface science, as practiced until the end of the 20th century, has provided much of our present understanding of solid surfaces, thanks to an extensive array of surface-sensitive microscopy and spectroscopy techniques, which have revealed the atomic, electronic, and chemical structure of many crystal surfaces. However, real surfaces are always in contact with gases or liquids, and our knowledge of surfaces under such realistic conditions is far less extensive, because only a few experimental techniques can probe surfaces in realistic conditions. This lack of knowledge is referred to as the pressure-temperature gap between surface science and chemical technologies. This project focuses on silver and copper catalysts supported on alumina for ethylene oxidation reaction. This is a commercially important reaction because the annual global demand for ethylene oxide is over twenty five million tons. The merit of this project is not limited to providing an atomic and molecular level understanding of ethylene oxidation reaction, but will also serve as a benchmark, for other fundamental reaction studies. The metal/oxide interface is a highly complex system (multicomponent, multiple interfacial boundaries) and poorly understood, and adds complexity due to presence of environmental reagent gases. The project aims to shift the current paradigm by simultaneously bridging the complexity gap in parallel to the pressure and temperature gaps. Therefore, the project includes developing novel techniques and methods that will be applicable to other metal/oxide systems and other reactant gas admixtures. A measure of its importance is seen in the fact that more than 90% of the catalysts used in the industrial processes are metals supported on oxides.

Technical Summary

Catalytic reactions occur typically at high pressures (>1 bar) and temperatures (>295 K) in most industrial processes compared to the rarefied ultra-high vacuum (UHV) pressures and cryogenic temperatures used in traditional surface science studies. To bridge this pressure gap and temperature gap between science and technology the proposed studies will be performed at 295 K and above, and in the presence of gases in the Torr-bar pressure range, thus approaching the range relevant to industrial production, while avoiding significant sacrifices in terms of measurement resolution and accuracy. This will involve the utilization of microscopy and spectroscopy techniques, namely x-ray photoelectron spectroscopy (XPS), infrared reflection absorption spectroscopy (IRRAS), and scanning tunneling microscopy (STM), that have been specially adapted in the last decades to be performed at ambient pressures. Chemical, atomic, and electronic structure of the Ag/Al2O3 and Cu/Al2O3 metal/oxide surfaces under ethylene epoxidation reaction conditions will be investigated. This commercially important reaction has an annual global volume of 25 billion kg ethylene oxide produced in 2013. Because Al2O3 is a strong dielectric, new tools and methods are introduced in addition to those mentioned above: Freestanding ultra-thin membrane approach, and atomic force microscopy (AFM) imaging and spectroscopy. Combining these four techniques will provide unparalleled mechanistic insights into catalytic reactions occurring on model heterogeneous catalysts, particularly to ethylene epoxidation reaction chosen in this project.